Studies of In Flight Annihilation of High Energy Channeled Positrons in Single Crystals

9623610 Golovchenko This experimental condensed matter physics project will explore experimentally the basic interaction of positrons with crystalline matter. The main focus will be on the process of in-flight annihilation of channeled MeV positrons with crystal valence electrons. The annihilation yields should be proportional to the electron density along the positron path, and should also be very sensitive to the spin polarization of the electrons. The experiments are expected to demonstrate that positron channeling can be developed into a sensitive probe of the electronic and magnetic structures of crystals on the atomic scale. This is a fundamental research project, but the results should lead to new instrumentation having broad technological applications in a range of materials research areas. %%% Positrons and electrons are antimatter-matter twins, with the consequence that when brought very close together, they annihilate - converting their energies, of mass and momentum, into energetic photons called gamma rays. It has recently become possible to obtain accelerated beams of mono- energetic positrons with sufficient intensities to develop the annihilation interaction as a sensitive atomic scale probe of the electronic and magnetic properties of crystals. In this research, energetic positrons will be focused (channeled) by the atomic potential of a crystal. The data will provide information about the density of the electrons that determine the atomic scale electronic and magnetic properties of the materials. This is a fundamental research project, but the results should lead to new instrumentation having broad technological applications in a range of materials research areas. **